REU Site: Center for Embedded Networked Sensing (CENS)

This award provides support for 15 undergraduate students to engage in a summer research experience at the University of California, Los Angeles Center for Embedded Networked Sensing (CENS), an NSF-funded Science and Technology Center. The students will have a unique opportunity at the Center to experience a systems approach to undergraduate research training. Students will spend ten weeks on site and will have the opportunity to have access to various activities and events through the academic year through participation in the CENS Alumni Network program. This program will serve to encourage undergraduates to pursue advanced degrees in engineering and thus impact the nations need to increase the number of U.S. citizens and permanent residents engaged in research-related careers. It is also anticipated that this program will have a Broader Impact on the nations need to have broader participation in the research enterprise of citizens and permanent residents from demographic groups traditionally underrepresented in science and engineering.